Charge Exchange, Resonance Formation, and Electron Emission in Ion-Surface Interactions

*** 9604872 Thumm The scattering of positive atomic ions from metal surfaces is studied theoretically using a novel technique, Weyl wavepackets, to include the effect of the continuum levels on the transition probabilities. Applications of the methodology to chemisorption and catalysis will be investigated. ***